Renovation of Facilities for Undergraduate Research - Research Training in Biology, Chemistry, and Geoscience

9214441 Bennett This award will provide funding for the renovation of areas in existing facilities for undergraduate research and research training in biology, chemistry and geoscience at Hobart and William Smith Colleges. The existing structures, Lansing and Eaton Halls, were built in 1952 and 1961 as conventional facilities for undergraduate science instruction and are currently inadequate for the mission of the institution that all students pursuing scientific disciplines be involved in research training, independently and in collaboration with research faculty. Laboratories are deficient in size, configuration, technical specifications, safety provisions and are not accessible to handicap students and faculty. Due to overcrowded conditions in the laboratories, the number of students that can be accommodated is limited. Research space competes with instrumentation and equipment storage, further eroding the functionality of the existing space. In addition to refurbishing laboratory space, renovations will include installing new fume hoods, upgrading the electrical and plumbing systems and removing all hazardous materials that make for an unsafe environment. The modernization and enhancement of the Colleges' facilities for research and research training in the sciences will therefore contribute directly to the pipeline of college graduates entering the nation's base of scientific personnel, expanding access in the process to women and individuals of diverse ethnic background. ***